Classicism, Constructivism, and Scientific Indispensability Arguments in Mathematics

9310667 Hellman How much of the apparatus of modern mathematics is really needed for its applications in contemporary science, especially physics? Could some smaller subset of contemporary mathematics (some of these alternatives are finitism, constructivism, intuitionism, or predicativism). This is the central question which Professor Hellman is addressing. He is further developing and extending his ongoing work on the question of the scientific indispensability of classical infinitistic (i.e. "non-constructive") mathematics and on the question of the significance of such indispensability for the philosophy of mathematics. The first part of his project focuses on constructivist programs, one of the groups of alternatives to classical mathematics, and their capacity to recover empirically significant portions of mathematics employed in the physical sciences that appear to pose special challenges, especially the calculus of variations and the singularity theorems (Hawking and Penrose) of space-time physics. The second part concerns philosophically interesting intermediary systems falling "between" (in special senses) constructivist and full classical systems, especially the quasi-constructivism known as predicativism (originating with Poincare and Weyl) and certain nominalistic systems. He is examining both scientific and mathematical- philosophical challenges to predicativism with the aim of assessing predicativism's viability as a foundational framework for mathematics. Finally, in the third part of his study, Professor Hellman is beginning to assess the overall scope and force of "indispensability" arguments (as justification for abstract mathematics) in light of results of his earlier work and also in light of recent challenges to the effectiveness and cogency of such arguments. ***